2004 Theoretical Biology and Biomathematics Gordon Conference

Elston

The principal investigator and his colleagues organize the
2004 Gordon Research Conference on Theoretical Biology and
Biomathematics. The format of the conference is nine formal
sessions, each beginning with an introduction to the field by the
session chair followed by two or three invited talks. In addition
to the formal sessions, there are two afternoon poster sessions.
The session chairs and invited speakers consist of both
established leaders and energetic new investigators who are at the
forefront of quantitative biology. Consistent with tradition, a
wide variety of topics ranging from spatial modeling in ecology to
biological molecular motors are represented at the conference.
This breadth of topics, which includes biological phenomena
ranging from the molecular level up to the whole organism,
reflects the theme of this year's conference, "multi-scale
biology." Invited speakers are selected based on their expertise
and accomplishments, while trying to balance gender and minority
representation.

The primary goal of this conference is to bring together
established and young investigators from the field of quantitative
biology to share new approaches and discuss advances in this
exciting and rapidly growing area. The relatively small number of
attendees and informal format of the meeting provide an ideal
setting for germinating new scientific collaborations. This
multidisciplinary conference is crucial for identifying new
challenges and directions in the rapidly growing field of
theoretical biology. Many graduate students and postdoctoral
fellows are attending this year's meeting. Therefore, the
conference serves to increase the number of scientists working in
areas of quantitative biology.